FAW: Relations Between Language and Thought in Young Children

With a Faculty Award for Women Scientists and Engineers, Dr. Susan A. Gelman will be able to continue to study the relations between language and thought in young children, uncovering principles that children use to structure knowledge and experience. She has already discovered that children make use of sophisticated strategies to organize knowledge at an earlier age than traditional theories of development predict. She discovered this by developing new experimental techniques for use with preschool children (until recently a relatively neglected age group) and novel linguistic analyses of language and concepts. One representative finding from her laboratory is that children as young as two-year olds expect category members to share important, nonobvious similarities, such as internal parts. They infer that members of the same category (e.g., blackbird and flamingo) share underlying properties despite salient perceptual dissimilarities between the category members. In a sense, very young children act as if members of a category share an underlying "essence." This previously unsuspected ability contradicts a widely accepted view that children's concepts are limited to concrete, perceptual, and obvious qualities. Gelman has proposed that children have an early capacity to look beyond salient perceptual properties, that this capacity predates training in science, and that it serves as a mechanism for further cognitive development. In addition to the developmental implications, these results suggest a new way of thinking about categorization. Traditional accounts in psychology define categories as static clusters of primarily superficial and obvious features. In contrast, these findings indicate that hidden, nonobvious properties are psychologically important. This work is important for several reasons. It will provide basic information about the usual course of preschool conceptual development, knowledge of which should provide educators with better ways to present information so that it can be grasped by children when they enter formal schooling. The information can also be useful in giving early warning of developmental disabilities that manifest themselves only in very subtle ways in preschoolers, so that intervention programs can be undertaken before the children become stigmatized as "slow learners" or some such in school. It will also assist in the professional development of a young scientist with the potential to become one of the superstars of her field.